Undergraduate Teaching Laboratory for Cellular and Organismal Physiology

9352764 Lall A one year undergraduate laboratory in cellular and organismal physiology emphasizes the molecular and cellular aspects of excitable tissue (nerve and muscle) the first semester and organismal physiology, including physiological adaptation and ecology, the second semester. The general outline for each semester is to introduce new techniques and concepts the first half of the semester and encourage student designed projects the second half of the semester. ***